Presidential Young Investigator Award/Studies of Odd-Electron Inorganic and Organometallic Compounds

With this Presidential Young Investigator Award from the Inorganic, Bioinorganic and Organometallic Chemistry Program, Dr. Rinaldo Poli of the University of Maryland will synthesize and characterize new compounds of transition metals. The research will emphasize new compounds of molybdenum with odd numbers of electrons, with the catalytic activity of these being of especial interest. The class of 17-electron compounds of the formula MoCpX2L2, where X=anionic ligand and L=neutral ligand such as phosphine, will be investigated. The effects of the nature of the ligands X and L on the electronic structure, bonding, redox properties and reactivity toward ligand substitution will be determined, with emphasis on derivatives where X is H, alkyl or aryl. The activation of small molecules, including carbon monoxide, dinitrogen, carbon dioxide and ethylene, by odd-electron systems will be investigated also.